Leadership Workshop in Field Biology and Geology for Secondary Teachers

This Leadership Activities project will provide professional development for 20 outstanding junior and senior high school science teachers. The grant provides support for the continuation and further development of a six-week field biology and geology workshop conducted by University of Dayton scientists. Emphasis will be on applied biology, field ecology, and environmental geology. During the first three weeks the principles of ecology and geology will be introduced with intensive field trips to natural sites within the local environments of the schools. The final two weeks of the summer program will include intensive work at high altitude ecological and geological sites. Several high altitude researchers will be involved in working with the teachers during this time. Earlier versions of this workshop have been very successful, and this summer program will emphasize the importance of field-based activities for students in their own environment. Among other things, the project directors will talk with the principals of each participating teacher to ask for administrative support and to emphasize the importance of field trips for students. The program includes an extended academic phase that will result in the preparation of instructional modules. Participants will meet together during the academic year to discuss progress, there will be several field trips to local resource sites, and the participants will be expected to provide workshop outreach to others in their schools and communities. In addition, they will receive 10 semester hours of graduate credit, certificates of achievement, and will be honored by local media.